Differential Geometry in the Large

Abstract

Award: DMS-0503735
Principal Investigator: Peter Li

The PI will continue the joint investigation with his coauthor,
Jiaping Wang, on rigidity and finiteness properties of certain classes
of complete manifolds. Motivated by the theorem of Witten and Yau,
the PI and Wang proved some rigidity and finiteness results for
n-dimensional complete manifolds with Ricci curvature bounded from
below and has the spectrum of the Laplacian bounded from below by a
positive constant. One of the main projects is to consider a more
relaxed hypothesis than the above mentioned. Instead of assuming that
the spectrum has a positive lower bound, Li and Wang will consider
manifolds on which a weighted Poincare inequality is valid. The more
general hypothesis will enlarge the class of manifolds under
consideration to include even Euclidean space of dimension at least
3. Other projects related to the wieghted Poincare inequality will
also be considered. In particular, its relationship to Agmon's
distance in the elliptic setting, the work of Li-Yau in the linear
parabolic Schroedinger equation setting, and the Perelman's L-length
in the non-linear parabolic (Ricci flow) setting.

The work of Witten-Yau drew conclusion on a certain physical model of
the universe and showed that there is no worm-hole. A broader purpose
of the project is to seek a substantial generalization of their work
in a geometric setting. In particular, this research project will
give further understanding of unbounded (infinite) geometric objects.
In this sense, a possible long-term effect is the understanding of
other physical models of the universe. The understanding of geometric
structure will also have broader impact on material science. This line
of investigation will yield direct implications to the theory of
partial differential equations governing the behavior of many physical
models and biological models. It is also related to many engineering
problems, such as, liquid crystals, heat transfer, and imaging.